Foundations of Language Design

Unlike syntax and semantics, design is not an aspect of artificial languages that has been amenable to formalization, although it is an obvious candidate for such work. Most studies of the design of formal languages have been extremely informal, and could not be used to develop tools for a language designer. Even the more sophisticated, semantics based, studies while insightful, treat the process of design nebulously. In many situations, ranging from summarizing natural language database responses, to formalizing question and answer systems a universe is given and the challenge is to find a way to communicate information about aspects of the universe in an appropriate language. In previous research they have developed a formalization of language design in which designs are expressible in steps. In this work the PI will investigate several crucial issues in the mathematics of the system of design they have developed, and will continue an implementation of the language for design. Sequoya is being implemented in C and Franz Lisp on a VAX 11/780 running under Berkley UNIX 4.3 at the Univ of CA-San Diego.